US -Australia Cooperative Research: A Functional Approach to Strong Coupling in QED & QCD

In this collaboration, Dr. Herbert Fried, of the Brown University Department of Physics, will work with Dr. Brian McKellar at the Department of Physics of the University of Melbourne, Australia, on problems associated with the definition of the infrared approximation in Quantum Chromodynamics, in a non-perturbative formalism containing both quarks and gluons, and the binding structure of quark-antiquark and three-quark states. Current techniques and theory cannot be applied to large-scale structure. The U.S. PI has recently defined new methods to approach the problem and would collaborate with Australia's leading expert in this field. The results may enhance our understanding of the fundamental structure and behavior of matter.